A Network and Mass Store Upgrade at IGPP

9724633 Orcutt This award to University of California at San Diego's Scripps Institution of Oceanography provides funds for acquisition of new computer networking infrastructure, computers and mass storage devices to expand on-line access by researchers around the world to geophysical data sets maintained by the Institute of Geophysics and Planetary Physics. The award is made under the Major Research Instrumentation Program, and it includes a substantial cost-share contribution from University of California sources. ***